Mathematical Sciences: Constructive Measurements and Stability for Convex Sets

9401487 Groemer The research entails the geometry of convex bodies and their relationship with Legendre polynomials and spherical harmonics. Various packing type problems in convexity will also be studied. The scope of this research has potential applications to vibration engineering, robotics and automated sensing. ***